Heterochromatic Loci and Position Effects in Drosophila

The regulation of the light (lt) gene which is located within or very near the heterochromatin of Chromosome 2 of Drosophila melanogaster will be studied. When removed from heterochromatin and placed in distal euchromatin by a chromosome rearrangement, the lt gene shows variegated expression. Using P-element-mediated transformation, we will determine if a similar position effect occurs when the gene and its surrounding repetitive sequences are introduced into a variety of chromosomal sites. The transformed gene will be tested for interactions with known trans-acting modifiers of variegation. The transformed middle repetitive sequences will be examined for properties attributed to heterochromatin. We will assay for the ability of these sequences to induce variegation of euchromatic genes or alter chromosome morphology in polytene tissue. These studies of position effect variegation address questions about the molecular determinants of chromosomal structure and functional differences between the heterochromatic and euchromatic chromosomal domains. The properties of the heterochromatic lt gene of D. melanogaster will be compared to its euchromatic homolog of D. virilis to provide insight into the evolutionary mechanisms that allow a gene to function in heterochromatin.***//